Acquisition of an FTIR System

Fourier Transform Infrared (FTIR) spectroscopy is a technique that uses absorption of infrared energy to probe molecular structure. The presence of an FTIR system is crucial for enhancing the research environment of the modern chemistry department. In the Chemistry Department of the North Carolina State University, the acquisition of an FTIR system will be supported by an award made jointly by the Chemistry Shared Instrumentation Program and the Instrumentation for Materials Research Program. The areas of research that will be enhanced include: 1) Studies of the spectroelectrochemistry of heme protein electron transfer reactions. 2) Studies on intramolecular and intraligand charge localization in electrochemically reduced di- and triimines and their d-6 metal complexes. 3) Studies on very fine films of the dielectric silicon nitride and semiconductor silicon carbide prepared by laser and electrochemically confined plasma techniques.